Video On The Computer: A Microcomputer-based Physics Laboratory

This project will demonstrate the use of video lab exercises as part of a complete program of microcomputer-based laboratory physics instruction. Recent technological developments which allow live video to be captured directly on standard computer memory will be exploited to eliminate the need for laser video discs. This should prove to be a very cost-effective method for creating and storing new physics video experiments. A Local Area Network composed of twelve Macintosh IIvx student workstations and two Macintosh Quadra video capture stations will be assembled. Each workstation will be interfaced with appropriate sensors and probes, allowing data acquisition and analysis as well as video playback and editing. Students will perform selected video experiments in addition to more standard laboratory work. Physics and pre-Engineering students will design, shoot and analyze their own video lab experiments. Students in all courses will produce electronic lab reports-- audio/video clips stored in computer memory together with text and graphics detailing their analyses. Along with their video work, students will employ spreadsheets in analyzing data from experiments modelled on those developed under previous NSF- and FIPSE-sponsored work -- notably Workshop Physics and Tools for Scientific Thinking. The focus will be on active involvement of students and conceptual development based on hands-on experience.